CAREER: A Formal Programming Methodology with Applications to Developing Automated Verifiers

CCR-9985239
CAREER: A Formal Programming Methodology with Applications to
Developing Automated Verifiers
PI: James L. Caldwell

The goals of this research are (i) the development of new methods for
formal program development which combine existing approaches to
verification and synthesis; (ii) the application of those methods to
the development of correct-by-construction verification engines; and
(iii) integrating the formalized mathematics that supports these
methods into the undergraduate computer science curriculum. In
program development practice it is sometimes more expedient to verify
a known program, while at other times, synthesis is the better
approach. The research investigates methods of combining these
complementary modes of development within a single framework to
justify the correctness of complex software artifacts. The work
largely takes place within the framework of the constructive type
theory provided by the Nuprl system. This new method of program
development is applied and refined in the context of efforts to secure
correct implementations of automated verifiers; model checkers and
decision procedure based verification engines. The digital
representations of mathematical definitions, proofs, proof strategies,
and theorems that support this mode of program development formally
encode the applied mathematics of Computer Science. This research
explores new ways to incorporate this material in the undergraduate
classroom.